Optimal Design and Layout of the Fast-Pick Area of a Warehouse

This research project will develop mathematical and computational methodology to optimize the design of the "fast-pick area" of a warehouse (the small, conveniently-located region where most order-picking is concentrated and which does restocking from a bulk storage area support). The methodology will include algorithms to answer the key questions: How large should the fast-pick area be? Which products should be represented there? How much of each product should be stored there? The methodology will answer these questions by taking into account the physical dimensions of every product in the warehouse, the dimensions of every storage mode, the space available in the warehouse, and the patterns among customer orders.

This methodology will "tune" the design and layout of a distribution center to the expected flow of products and so reduce the work-content required to move the product. This will reduce the labor requirements (especially of overtime and temporaries) while getting maximum value from storage equipment. In
addition, it will reduce inventory levels, increase responsiveness of the distribution center and smooth product flows downstream.